Mechanisms Underlying Plant Cell Development

The goal of these studies is to learn about the control of plant cell differentiation. Utilizing epidermal cell redifferentiation into parenchyma during postgenital carpel fusion in Catharanthus roseus to pursue these studies. During normal floral ontogeny in C. roseus, approximately 400 epidermal cells are induced to rapidly redifferentiate during the postgenital fusion of the two carpel primordia. Dr. Verbeke has previously reported experiments involving the placement of water permeable and water impermeable barriers between prefusion carpels which implicate a diffusible agent as the morphogen for redifferentiation. This proposal continues Dr. Verbeke's characterization of communication factors that convey positional information to plant epidermal cells. Specifically she will focus on the following questions: 1) Are the two carpels producing distinct factors, a combination of which are essential for redifferentiation? 2) What are the physical characteristics of these factors? 3) What are the chemical characteristics of these factors? and 4) How universal are the factors? %%% The mechanisms by which patterns of discrete cell types are formed in response to their position is a long standing problem in developmental biology. A cell that reacts in a special way in consequence of association with another must do so because it acquires "information" from that other, information that must be conveyed through chemical or physical signals. These experiments continue a characterization of communication factors that convey positional information to plant epidermal cells.